Planning: NSF FF: Planning: Promoting Success in Algebra by Integrating Best Practices in Small-Group Learning with AI

This FINDERS Foundry award accelerates students success in the pivotal STEM pathway of Algebra by improving practices of small-group learning for educators and learners. While many students struggle in Algebra, diminishing long‑term STEM engagement, teachers too face high workloads when implementing research-based Cooperative Learning approaches to scaffold student learning. Through co-design of a platform that streamlines group formation, supports collaborative learning, and allows teachers to continuously monitor progress and Cooperative Learning routines. Students receive timely feedback while teachers have real-time insights to enhance learning. The platform integrates Cooperative Learning routines with an Algebra‑specific AI tutor to provide real‑time feedback to student groups while teachers use a dashboard to identify misunderstandings and deliver timely support. By lowering barriers to high‑quality small‑group instruction, the project improves Algebra learning and strengthen students’ persistence in STEM.

This FINDERS Foundry award identifies the technical design required to reduce planning and logistical burdens teachers face when implementing Cooperative Learning in Algebra to accelerate student knowledge acquisition and enhance instructional time. By identifying essential Cooperative Learning design features, modeling teacher workflow requirements, and specifying the technical infrastructure the system offers real‑time AI‑supported feedback loops to learners. Integrating intelligent group‑management features with an AI tutor capable of delivering formative feedback, diagnoses patterns of student misunderstanding, routing actionable insights to teachers with data to provide a first tier of distributed support. The project outlines metrics for evaluating instructional value, teacher workload efficiency, and student learning outcomes to result in a high‑fidelity framework for AI‑supported Cooperative Learning that enhances Algebra instruction while preserving teacher oversight and aligning with evidence‑based cooperative structures.